Qeraryaraliluta - Academic and STEM Bridge Building in the Yukon-Kuskokwim Delta

To make STEM education available to the Yup.ik residents of the Y-K Delta, we propose to do the
following to establish an academic program that effectively trains Alaskan Natives for STEM
careers and bridges these students to the main campuses in Alaska:
- A suite of proven models will be utilized. These models include (1) the Treisman model for
effective methods of teaching mathematics, (2) the ANSEP model for recruitment,retention
and matriculation, (3) the ESP (Emerging Scholars Program) model for retention and
guidance, and (4) the TRIO model for recruitment and intensive course delivery.
- The models will be modified and combined to most effectively serve the Yup.ik students in the
Y-K Delta. For instance, elements of the Treisman model and the ANSEP model will be
directed at recruiting and training non-traditional and under-prepared students as well as
Yup.ik students with strong academic records. This program will broaden the scope of
recruitment and retention beyond what has previously been done in other programs.
- An integrated program of new course offerings in mathematics, physics, chemistry, biology
and information technology will be developed at KuC. This suite of courses will give students
options in the programs they enter at KuC, will enable students to receive two years of STEM
education at KuC before matriculating to the four-year campuses at Fairbanks and
Anchorage, and will allow them to locally receive professional certifications and associate
degrees with emphasis in STEM areas.
- using modified forms of the TRIO/Talent Search and the ANSEP models, both non-traditional
and high school students will be recruited. Summer intensive camps will be offered to involve
students in science, technology and mathematics. One-month intensive courses in
mathematics, science and computer technology will be offered in order to give prospective
college students stronger backgrounds in these areas before enrolling in college. Students
will also participate in TALPA, where they design and build their own computer. The purpose
of these summer intensives is to create interest in and excitement about STEM careers.
- The summer intensives are followed by distance-delivered videoconference courses to high
school students to keep them involved in the program and to continue their STEM training. A
number of distance-delivered courses in ITS will also be used for this purpose.
- In conjunction with the summer intensives and recruitment activities, the ESP and ANSEP
faculty will engage in a proactive advising and guidance effort to involve the students in
college activities, build cohort groups, a strong sense of community among the students, and
improved student self image. The advising center and STEM faculty will likewise maintain
contact with high school students.
- Upon enrolling in KuC, students continue to receive advising, guidance and rigorous STEM
training, and they continue to work within their cohort groups. Bridging will be accomplished
when they matriculate to the four-year campuses.